Enhancing the Effectiveness of the Undergraduate Research Program in Psychology

The Department of Psychology at Clark University is establishing an undergraduate laboratory network in support of the teaching of observational and experimental methods in psychology through hands-on experience. For more than half of the Department's major students, the high point of their curriculum is participation in the Department's Research Course Program. The Research Course Program is a system of courses in which advanced undergraduate students work closely with faculty and graduate students in faculty laboratories. Their work usually culminates in a presentation at a local, regional, or national research conference. This project provides three undergraduate laboratories. It provides equipment for faculty research settings that are specifically dedicated to undergraduate use. It will also outfit a "research skills room" where sophomores preparing for research experiences may simulate experimental and statistical decision making and practice observational techniques. Finally, it provides and equips a "Poster/Presentation Room," where research course students can prepare poster and pamphlet presentations.